International Travel Grant: U.S. Involvement in HAZARDS-2004

Prop ID: 0501107 P I: Yeh, Harry H.

Organization: Oregon State University

Title: International Travel Grant: U.S. Involvement in HAZARDS-2004

ABSTRACT

This action provides support for U.S. participation in the International Symposium HAZARDS-2004, to be held in Hyderabad, India on December 2004.

This international symposium will be held in Hyderabad, India, in December 2004. The symposium is organized biannually by Natural Hazards Society, and is set to present a wide range of natural hazards mitigation strategies, from fundamental understandings of the phenomena to evacuation planning. The topics include (but not limited to) meteorological hazards (e.g. hurricanes/typhoons/cyclones, tornadoes, fires, droughts), geological hazards (e.g. earthquakes, landslides, volcanic eruptions), hydrological and marine hazards (e.g. tsunamis, storm surges, floods, sea-level rise, marine biological hazards), and technological hazards (air and water pollution). The participants supported by this request will include an expert in structural-reliability engineering, a tsunami expert, a social scientist, and a junior scientist of the U.S. natural hazards community, whose presence at the symposium is critical for continual and future cooperative research with international scientists and engineers. During the symposium, the PI will promote and attempt to gain the right to organize the next symposium, HAZARD-2006, in the US. If it happens, HAZARDS-2006 will substantially enhance our international collaboration in multi-disciplinary hazard-mitigation research.

Findings from this symposium will be disseminated to U.S. researchers in natural hazards.